Computer Science, Engineering, and Mathematics Scholarships Program (CSEMS)

This program provides funds to math, engineering, and computer science students for one and two year scholarships. This enables the students to complete their academic programs in a more timely manner. This program also includes industry mentors for each student, one-on-one faculty advisors, second year industry- based cooperative education and service learning opportunities, professional development activities, and strong student support services. This scholarship program provides broad opportunities that enable the participation of talented, but low-income students, underrepresented minorities, and person with disabilities the opportunity to complete an associate degree and to enter the workforce in this area of national need.